IMPLEMENTING THE "5XME" WORKSHOP RECOMMENDATIONS

The objective of this proposed workshop is to lay the groundwork for implementing the recommendations that were developed through The “5XME” Workshop, held on May 10-11, 2007 in Arlington, Virginia. The proposed workshop will develop curricular templates, at both the undergraduate and graduate levels, based on the recommendations from the previous report, for various types of schools (e.g., large public, large private, small public, small private). It is anticipated that these templates will facilitate the adoption of the 5XME recommendations by a wide cross section of mechanical engineering departments across the country.

A diverse group of mechanical engineering educators will be brought together in the workshop to ensure that all points of view and learning styles are fully considered. These workshop participants will represent leaders (e.g., department heads, program advisors) from a variety of schools (i.e., small, large, public, private) to reduce the barriers to implementation of curricular reforms in mechanical engineering departments across the country